Support for Eleventh International Congress on Catalysis, June 30 - July 5, 1996, Baltimore, Maryland

ABSTRACT CTS-9530911 Support is provided to subsidize the attendence of graduate students and postdoctoral fellows at the Eleventh International Congress on Catalysis to be held in Baltimore on June 30- July 5, 1996.